International Workshop on Algebra and Geometry, Hyderabad, India

I. The Principal Investigator, David Eisenbud, will support the travel
from the US of participants in the International Workshop on "Algebra
and Geometry' to be held at the University of Hyderabad, India, 7-12
December, 2001, website <http://202.41.85.102/icag.htm>. The main
themes of the Workshop will be Commutative Algebra and Algebraic
Geometry, Computational Algebraic Geometry, and Quantum Algebra.
In each of these topics there will be one or two survey talks
and several research talks. Plenty of time will be reserved for
discussions between the participants, and it is expected that new
collaborations and research associations between Indian and
US mathematicians will come from these contacts.

II. In recent years both US and Indian mathematicians have made
major contributions to the fields of Commutative Algebra,
Algebraic Geometry, and Quantum Algebra. These three fields
increasingly use tools from Computational Algebraic Geometry
to check conjectures and to aid research. They also contribute
tools which are used in the computational systems that underly
robotics, cryptography, and other national applications of
strategic interest. The proposed conference will foster
collaboration in these fields between the US and Indian communities.